Learning Progressions in Science (LeaPS) Conference

This conference proposal brings together researchers from the cognitive sciences and science education who are actively engaged in conducting research around learning progressions. The PIs argue that learning progressions represent a promising framework for developing organized curricula and meaningful assessments in science. For this reason, they are gaining popularity in the science education community. However, the PIs identify a number of issues that must be addressed around learning progressions and these issues form the strands for the conference. They include (1) the need for clearer definitions; (2) developing and validating assessments; (3) using statistical modeling to summarize students' level on a learning progression; and (4) implications of learning progressions for curriculum, teacher education and assessment.

The PIs propose a workshop format to discuss the above challenges, to identify concrete examples of how researchers are addressing these challenges and to develop where there is consensus to guide productive next steps.